Teaching Physics Using Interactive Digitized Media

9353965 Fuller This project offers an undergraduate faculty enhancement workshop for each of two summers, 1994 and 1995. The purpose of this project is to host two week workshops on Teaching Physics Using Interactive Digitized Media. Each workshop will: i) foster a discussion and formulation of new strategies for the teaching of physics using the capabilities of interactive digitized media; ii) enable 30 physics professors to become skilled in the use of interactive digitized media for teaching physics courses for undergraduates; iii) help physicists develop lessons that change the present physics content using existing interactive digitized media software and technologies; iv) prepare the participants to lead local, regional, or national workshops on new science content using interactive digitized media technologies; and v) make the interactive digitized media lessons developed by the workshop participants available to physics educators throughout the country. ***